Metric Differential Geometry and Mathematical Gravity

Abstract

Award: DMS-0708048
Principal Investigator: Gregory J. Galloway

This proposal is concerned with research projects at the
interface of spacetime geometry and general relativity. In
particular, properties of marginally trapped surfaces, which have
played an important role in theory of black holes, will be
investigated. Although physically well motivated, very few
rigorous results about marginally trapped surfaces, and
associated objects, such as dynamical horizons, had been known
til recently. This situation has changed, and there are now
rigorous results concerning existence, uniqueness, and other
issues. Motivating this study in part is the realization of a
deeper connection between marginally trapped surfaces in
spacetime and minimal surfaces in Riemannian manifolds. The PI
will conduct research on a number of topics pertaining to
marginally trapped surfaces, such as the topology of black holes,
rigidity and regularity of outermost marginally trapped surfaces,
and aspects of dynamical horizons. String theory has increased
interest in gravity in higher dimensions, and, in particular,
there has been a great deal of recent research concerning black
holes in higher dimensional spacetimes. Schoen and the PI
recently obtained a generalization to higher dimensions of a
classical result of Hawking concerning the topology of black
holes. One part of the present proposal, involving joint work
with Schoen, concerns an effort to obtain an important
strengthening of this result, which would close a gap in the
conclusion concerning allowed topologies. This circle of ideas
should also be useful in obtaining lower entropy bounds for
higher dimensional stationary black holes in the asymptotically
AdS setting that extend known results in four dimensions. The PI
will also conduct research on a continuing project with Andersson
and Cai concerning the positivity of mass for asymptotically
hyperbolic manifolds, and research pertaining to a problem of
Penrose concerning the classical stability of string theory.

Modern theories of gravity are geometrical in nature. The
gravitational field and other fields, black holes and related
objects, may be described and analyzed using geometric
methods. In more general terms, this project is concerned with
the study of certain features of gravity of current scientific
interest from this geometric point of view, utilizing the tools
of Riemannian geometry, a mathematical theory of space, and
Lorentzian geometry, a mathematical theory of spacetime. These
theories provide a method for studying the relationship among
three fundamental aspects of the spacetime universe: curvature
(i.e., the bending of space or spacetime), topology (i.e., the
global shape and complexity of space or spacetime) and causal
structure structure (i.e., the large scale behavior of light rays
and light cones).